The Stability of Fronts and Eddies on a Stratified Ocean and the Generation of Internal Waves

The principal investigator will carry out a theoretical study of the combined effects of internal waves and eddy dynamics, specifically, the nature of the internal-wave field produced by a pulsating eddy, and the effect of this wave field on the eddy itself.